Mathematical Sciences: Singularities in Nonlinear Evolution Equations and the Self-Focusing of Lasers

This research will study the occurrence and structure of singularities of several evolution equations, particularly cases of the nonlinear Schrodinger equation which arise in nonlinear optics. It will also extend existing work to focusing phenomena in related equations of nonlinear optics that represent more complete physical modelling. Numerical work will be based on dynamic rescaling methods. This work should provide insight into many physical phenomena associated with nonlinearities. It may have practical applications in the field of optics.